Doctoral Dissertation: Assisted Reproduction in Ecuador: Social Implications of In-Vitro Fertilization and Gamete Donation

In 1984 the first South American in-vitro fertilization (IVF) baby was born in Columbia. Since
then clinics that offer assisted reproductive techniques like IVF and gamete donation have begun
operations in most Latin American countries. This dissertation research study investigates the social impact of IVF and gamete donation in urban Ecuador. It asks what happens when reproductive biotechnologies travel
from their initial sites of development in Europe and the United States to nations often considered
marginal to scientific practice and research. The investigators will examine how religious practices,
issues of political economy, and kinship narratives affect the way that IVF and gamete donation have
been understood and put to use in Ecuador. The author's preliminary research in three infertility
clinics in Ecuador shows that local Catholic practice plays a critical role in IVF laboratories in Quito
where images of the Virgin Mary are used to bless eggs and sperm to aid in fertilization. In addition to
documenting how local practice reshapes IVF in Ecuador, this study will examine how assisted
reproduction affects Ecuadorian society. For example, how does the technoscientific production of
children alter local understandings of overpopulation and the Ecuadorian ictraditionalli family?
This study will focus on four Ecuadorian IVF and gamete donation clinics. Using the
ethnographic tools of participant observation, semi-structured interviewing and discourse analysis, the
authors will investigate how IVF and gamete donation are understood and practiced by clinical
personnel and patients undergoing infertility treatment. To elucidate both the production and
consumption of public narratives concerning assisted reproduction interviews will also be conducted
with religious leaders, lawmakers, reporters and lay citizens about their perception of IVF and gamete
donation. Although IVF and gamete donor clinics now operate worldwide, the vast majority of the social
science literature concerning assisted reproduction has focused on North America and Europe. The
data generated from the author's study of assisted reproduction in Ecuador, concerning issues of
political economy, religious and kinship practices, will be used comparatively in a point by point
reexamination of the Euro-American literature. This rigorous comparative approach to the study of
bioscientific practice brings the cultural dimensions of science and technology to the forefront,
elevating this study beyond a specific focus on reproductive technologies or Latin America.
Ultimately this knowledge will allow for a more complex understanding of how the biosciences
everywhere, both in nations considered "developed" and "developing", are constituted and affected by
the local social realities surrounding their practice.